Nilpotent Orbits, Representation Theory, and Combinatorics

The principal investigator will study several questions
in representation theory, algebraic geometry, and combinatorics which are related to
nilpotent orbits in Lie algebras.
More specifically,
the investigator will continue his work on ideals in the poset of positive roots
and their connection to representation theory and the theory of cluster algebras.
He will also continue to study the Lusztig-Vogan bijection and to seek out its explicit computation.
He will try to complete the
determination of which nilpotent orbits in the exceptional Lie algebras
have normal closure and prove results (in all Lie algebras)
about the structure of
functions on covers of nilpotent orbits that rely on similar techniques.

Representation theory is a branch of modern algebra that is concerned
with understanding symmetries.
A central idea is that complicated algebraic or geometric structures can be
represented by a certain set of matrices (arrays of numbers),
which are easier to understand than the original structure. For example, the
symmetries of the square can be represented (in one possible way)
by a certain set of eight two-by-two matrices.
This view of representation theory has many applications in
chemistry and physics. The investigator's work will contribute to
understanding the representation theory of Lie algebras and Lie groups, which
are essential to understanding the symmetry of objects which arise in mathematics.